Planning Visit to Investigate the Use of Geographic Information System Technology in Northern Mongolia

9600486 Hession This is a project requesting funding for a planning visit to Mongolia by Dr. William Hession, the Academy of Natural Sciences of Philadelphia. The purpose of this planning visit is to evaluate whether he can include integrated spatial analyses and GIS activities in the study of Lake Hovsgol. The use of GIS in the analysis of environmental changes is important for understanding the relationships between biodiversity, landscape features, and human and natural stressors. This information can allow an integrated analysis of natural resources and research planning in the Hovsgol Nuur watershed.